Faculty Development in Interactive Teaching Techniques and the Utilization of Multimedia

A three-year project is proposed to train faculty in the integration of new teaching techniques that utilize interactive methods, personal computers, and miltimedia. Faculty will also be educated as to the student needs resulting from the recent growth in diversity in the student population. Thirty participants will be selected from two and four-year colleges within the New York metropolitan area. These institutions include Long Island University, Kingsborough Community College, St. Francis College, Pace University, and New York City Technical College among others. Participants will be required to submit a plan for dissemination as a condition for acceptance into the project. The options under this plan are: present the results of the utilization of the teaching methods learned at the workshops at one of six dissemination seminars conducted during the last two years of the project; present techniques learned from the activities of the project to faculty at the participants' home institutions; mentor two faculty members at the participants' home instititutions in the teaching techniques learned from the project. The workshops and dissemination seminars will be subject to formative and summative evaluation procedures.